Industry/University Cooperative Research Center for Aseptic Processing and Packaging Studies

9419541 Schwartz The Industry/University Cooperative Research Center for Aseptic Processing and Packaging Studies is becoming a multi-university Center with the addition of the University of California - Davis to the original North Carolina State University research group. Four new companies are joining the Center inconjunction with the University of California - Davis research site. Seven companies are already members of the initial Center. A woman undergraduate is also being funded for a study to determine the hydrocolloid - protein interactions in vitro. The researchers are eminently qualified for this research. The Center has been coordinated with Dr. Fred Heineken, Program Director in the Division of Bioengineering and Environmental Systems. The Program Manager recommends North Carolina State University be awarded $5,000 for the first year of a five-year continuing award. An additional $5,000 is recommended for one year with funds provided by the Women, Minorities, and Disabled Engineering Research Assistants Program. Funding for years two through five of the five year continuing award are recommended at $30,000 per year including $5,000 per year for an evaluator. Near the end of each 12-month period the Program Manager and/or the Division Director of the Engineering Education Centers Division will review the progress of the Center on a number of renewal criteria requirements, including the following: 1) the extent to which the industry/university interaction is developing; 2) the extent to which the support base is developing; and 3) the extent to which a robust research program is developing. If the review is satisfactory, the Program Manager will recommend support for the next period of this continuing award.